The Application of Chromosomal in Situ Hybridization to Problems of Hominoid Phylogeny

ABSTRACT P.I. Jonathan Marks SBR-9306205 The major triumph of applying molecular techniques in anthropological systematics was the finding that humans, chimpanzees, and gorillas are more closely related to one another than either is to the orang-utan. Not only are they closely related, but it is now clear that they are genetically approximately equidistant from one another, with the majority of workers now believing that chimpanzees are more closely related to humans than they are to gorillas - although there continues to be a debate on the resolution of this "trichotomy." The goal of this research project is to refine and apply the new and powerful technique of flourscent in situ hyubridization (FISH) to the phylogenetic analysis of chromosome rearrangements shared among the great apes and humans. Specific regions of DNA whose positions have been precisely mapped to human chromosomes will be used as probes to the corresponding positions on chromosomes of the apes. In this way, Marks will be able to identify the precise nature of chromosomal rearrangements that have taken place in the course of hominoid evolution, and may help to resolve the "trichotomy." *** P:\anthro\jfried\9306205.abs erved. ICONBARPROC SELECTION PAINTPROC EU W Q V 3 PQ t ^ Y _ f M X EU MM Õ M X EU F + F PPh F + F F F F ( ^ F F P F Pj = } v j = } j j F j v F F F P h4 j j h @j j j j j v Pj 6 j j F t_ v \ v j j , v j j 8 v j j D v j Q , 1 O Q ! ! ! D Q Q ( Times New Roman Symbol & Arial " h ıe ıe = Jonathan Friedlaender Jonathan Friedlaender